Structure of Quasi-One Dimensional Materials in High Magnetic Fields

9303837 Keimer The goal of this project is to develop a detailed microscopic description of the effects of magnetic fields on the static and dynamic lattice distortions of materials with quasi-one dimensional electronic structures. Using a superconducting split-coil magnet system capable of generating magnetic fields up to 13T, high- resolution x-ray scattering experiments will be performed on compounds exhibiting spin-Peierls and spin-density wave phases at low temperatures. Phenomena to be investigated include field- induced nonmagnetic-magnetic transition in insulating and conducting spin-Peierls systems, the effect of magnetic fields on the structure of semimetallic charge density wave compounds, and possible magnetostructural effects in field induced spin density wave phases. The structural information derived from these experiments will contribute to a quantitative understanding in correlated quasi-one dimensional electron systems. In particular, the microscopic origin of field-induced transitions in such compounds will be clarified. %%% This project will develop a unique facility which combines high- precision x-ray structure facilities with a very high magnetic field in which samples can be cooled to ultralow temperatures. In the presence of a magnetic field, the structural, magnetic and electronic properties change and new phases of the materials are encountered. The nature of these phase changes is not well understood, and essentially no prior experiments have been performed, owing to lack of facilities. The results of the research will be of fundamental importance to the fields of magnetism and electronic properties of materials. ***